Dissertation Research: An Ecological Study of Social and Temporal Subsistence Changes in Pacatnamu, Peru.

This study is designed to analyze the diet of prehistoric peoples of Peru. The student will work at the urban center of Pacatnamu that was occupied during the Chimu period (AD 1000- 1350). He will focus on subsistence practices and relate diet to social status. The idea that higher ranking social groups will have a wider variety of foods to eat than lower ranking groups will be tested. This dissertation study is an integral part of the Pacatnamu project, a large interdisciplinary project. Most of the archaeological research in the past four years has been designed to establish cultural and architectural chronologies. The proposed systematic study of subsistence will be the first to determine the interplay of ocean and land-based resources on the diet of prehistoric Peruvians. By examining the diet of groups within a single place and time period, the researcher will help us understand diet and subsistence in terms of class composition. This, in turn, will provide us with a detailed understanding of diet in complex societies.